Homotopy Methods in Knot Theory

I propose to use methods from algebraic topology in the study of knots. A
knot induces a map from the space of configurations on the knot to
configurations in the ambient manifold. With recently developed
compactification technology, one can fix boundary conditions on those
configuration spaces and study the homotopy class of this induced map
relative to those boundary conditions. Such an approach was pioneered
by Bott and Taubes in de Rham theory and by the PI and his collaborators
in homotopy theory itself. Results of Volic may be used to show that all
Bott-Taubes invariants, and thus all real finite-type invariants, are
homotopy invariants of this induced map. Already in lowest degree, new
geometric understanding arises from studying the induced map directly
homotopy, and I propose to continue this study in higher degrees. I
also propose to more deeply understand the role of operads in this theory,
as well as to extend these techniques to study link homotopy.

Knot theory, the study of embedded loops in space, is one of the oldest
and most distinguished fields in topology. For most of its life, knot
theory has developed in parallel with other subfields of topology. But
in the last twenty years, the field has changed dramatically from the
influence of previously unrelated fields. In particular, quantum field
theory has provided ground-breaking new constructions. One can try to
define the energy of a knot as an invariant, but in order to do so one
must "integrate over all connections", that is over all ways of putting
an "energy field" on the space in which the knot lives. Such an integral
does not exist in precise mathematical form, but through the standard
perturbative expansion in quantum field theory one can write down
Feynman integrals which are meant to approximate it to finite order.
Topologists have made such integrals precise and rigorous in this
setting, and shown that they provide a basis for the finite-type
invariants of knots. But topologists would like to reconnect the
theory to more standard constructions in topology. The PI's previous
work marks the beginning of such a connection. New geometric insight
was gained in the process, as the simplest quantum invariant can now be
computed by counting instances of a line intersecting a knot in exactly
four places. I hope to find both new connections with classical
topology and novel geometric interpretations in this proposed work.